Resonance Fermi-Superfluidity in a Carbon Dioxide Laser Trap

The objective of this work is the development of a second generation high-power, high-stability CO2 laser trap and its application to study resonant scattering interactions in ultracold two-state mixtures of Li-6 fermions. Of particular interest is the investigation of a new type of superfluid pairing which has recently been predicted to result from very strong resonant attractive interactions in the vicinity of a Feshbach resonance. In such resonance superfluidity, transition temperatures can be a large fraction of the Fermi temperature, far larger than in usual BCS pairing interactions, and much larger than even the highest temperature superconductors known.